An Autosteroscopic Display for Teleoperation Applications

This is an SBIR Phase II award directed to the use of unobtrusive autostereoscopic techniques for the display of three-dimensional views. The advantages of three-dimensional viewing are widely recognized but the restrictive use of glasses and the lace of understanding of image acquisition and configuration for its 3-D use have thwarted widespread acceptance in practical applications. The teleoperation applications to be considered include teleroboticic mining, underwater search and salvage, and medical endoscopic microsurgery. The research concentrates on solving the problems of balanced picture acquisition and processing, and unobtrusive viewing systems for autostereoscopy and consider mechanical, electronic, and optical constraints such as camera mounting, required signal bandwidth, and field of view and wide-angle viewing. These results translate in better choices for viewer movement range, camera configuration, and resolution.